REU Site: Parallel Processing

This project will bring eleven students to Utah State University for an eight week period in the summer of 1993 to work on ongoing research projects in the Computer Science Department in the area of parallel processing. The program will combine formal instruction in parallelism with the research work. The major research topics which will be emphasized are partitioning programs for parallel execution, optimization which combine fine grain parallelism with coarse grain parallelism, and fault tolerant software systems.